REU Site: Undergraduate Research in Molecular Biosciences

This award will support the participation of undergraduate students in the Research Experiences for Undergraduates program offered by the Colorado State University in Biochemistry and Molecular Biology. Biochemistry/molecular biology employs the methods of chemistry, physics, cellular biology, microbiology and genetic manipulation to study the structure and function of complex biomolecules, how these molecules generate the phenomenon we call life, and how alterations in these molecules perturb the living organism. Because of its breadth, biochemistry/molecular biology serves to integrate didactic and experimental material learned in a multitude of basic science courses. This REU site program in Molecular Biosciences will enable qualified undergraduates to do independent research projects in a range of areas and using a variety of experimental approaches. The program is designed to (a) offer the participants a wide variety of research areas from which to choose an independent studies project; (b) offer project areas that are meaningful and exciting to the student; (c) teach the student how to formulate and test hypotheses; (d) help develop the ability to trouble-shoot and problem solve when confronted with the unexpected; (e) instruct the participant in state-of-the-art techniques and instrumentation of biochemistry/molecular biology; (f) develop the ability to communicate with one's peers concerning ongoing research efforts as well as more formal presentations of completed research projects; (g) provide, in our faculty and in outside scientists invited to speak to the REU students, appropriate role models that will reinforce the intellectual excitement of a scientific career; (h) emphasize to all participants gender and diversity issues that impact research careers in science; and (I) render assistance to participants in applying for graduate studies and fellowships. This award will foster the continued education and training of individuals who will be part of the next generation of basic researchers in the diverse aspects of biochemistry and molecular biology.